National Life Sciences Education Conference II

The second in a series of Coalition for Education in the Life Sciences conferences will be held at the Wingspread Conference Center from February 21-23, 1992. 30 participants representing a number of different professional societies in the life sciences will gather to create a framework of principles and concepts in the life sciences, with an initial emphasis on serving teachers at the undergraduate education level. The conference will also focus on how to advance an improved life sciences education agenda at the national, state, and local levels.